Robustness of Source Coding

Under certain circumstances such as in mobile communication, one needs to transmit compressed data through a very noisy channel. Unless a very powerful error control coding technique is used, the misdecoding error probability for a very noisy channel is usually high. Since the use of very powerful error control coding technique will offset a large part of the gain obtained in data compression, this is not what we are willing to do. On the other hand, most of the efficient data compression algorithms are very sensitive to channel errors. The contradiction between high decoding error probability and catastrophic behavior of compression algorithms is the main problem we need to resolve in the study of transmission of compressed data through very noisy channels. In this project, we are examining an alternative approach to this problem. Instead of using source codes of small block length, or powerful error control coding techniques, we are developing robust data compression algorithms - algorithms which are insensitive to channel errors. We give two definitions of robustness of lossless data compression - the asymptotical mean robustness and the asymptotical mean semi-robustness - defined with respect to certain distortion measures. The most important distortion measures we use are Hamming distance and the so-called insertion-deletion distance. In this project, we propose 1) to study the existence of asymptotical mean robust lossless data compression algorithm that is also asymptotically optimal; 2) to develop practical asymptotically mean robust (semi-robust) lossless data compression algorithms; 3) to study various important properties of asymptotically mean robust (semi-robust) lossless data compression algorithms.